NNA Track 2: Collaborative Research: Current and future Arctic community vulnerabilities to sea-ice change and economic expansion

Navigating the New Arctic (NNA) is one of NSF's 10 Big Ideas. NNA projects address convergence scientific challenges in the rapidly changing Arctic. The Arctic research is needed to inform the economy, security and resilience of the Nation, the larger region and the globe. NNA empowers new research partnerships from local to international scales, diversifies the next generation of Arctic researchers, enhances efforts in formal and informal education, and integrates the co-production of knowledge where appropriate. This award fulfills part of that aim by supporting planning activities with clear potential to develop novel, leading edge research ideas and approaches to address NNA goals. It integrates aspects of the natural environment and social systems, addresses important societal challenges, and engages internationally and with local and Indigenous communities.

Arctic communities are experiencing unprecedented transformation due to environmental changes and expanding and intensifying economic development. For example, as the climate warms, sea ice becomes thinner and less extensive, which enables the expansion of global trade and more shipping traffic with larger ships. This project is investigating the impacts of rapidly changing sea ice conditions on Arctic communities, how these changes interact with social and economic threats, and how the socio-economic and other contexts of the communities affect their vulnerabilities to both. The perspective and concerns of Artic peoples are at the core of this project, which brings together leaders of Indigenous communities from across the Arctic region with Western scientists to explore these issues at multiple scales. This project is identifying ways that scientific products can better serve communal needs, and thus narrow the gap between scientific projects and adaptation and resilience of Arctic communities. An anticipated outcome is the consolidation of a research team of community members, organizations, and academics to co-produce a research design to address community needs in a rapidly changing Arctic.

This proposal brings together the frameworks of Double Exposure and Contextual Vulnerability to develop an analytical framework for understanding how the synergic effects of rapidly changing climatic and non-climatic processes on Arctic communities are mediated by socio-economic, biophysical, and political contexts. This research is co-producing knowledge with coastal Indigenous communities in Alaska, Greenland, and other regions on the current and future Arctic vulnerabilities to sea-ice change to identify gaps and providing options by context as interpreted and framed by community members. The work is generating analytical frameworks and research designs for understanding the effects on and vulnerabilities of communities to climatic and non-climatic processes.